Collaborative Research: New Immigrants From Asia Family and Ethnic Bases of Economic Adaptation

The overall objective of this project is to develop a new model of immigrant incorporation and test derived hypotheses for understanding the importance of family and ethnic bases of action among contemporary U.S. immigrants. Adaptive strategies of the family are a special focus of the project, unlike previous research which has more often stressed ethnic solidarity and labor markets. This research will show how the intertwining of ethnic and family bases of action influences the incorporation of Chinese, Korean, and Filipino immigrants in the greater Los Angeles area. This research follows on a prior NSF-funded ethnographic field study in Los Angeles. This research will conclude the field study and develop, translate, and pretest a questionnaire for a larger survey designed to complement the ongoing field study. Analyses of the proposed model would be carried out with event history, least squares, and multinominal logistic estimation techniques.